Center Evaluator at the UC Berkeley I/UCRC (BSAC)

ABSTRACT EEC-9708435 Levine The purpose of this award is to continue funding for the evaluator at the University of California, Berkeley's Industry/University Cooperative Research Center for Sensors and Actuators. The evaluator will develop comparative descriptions and conduct analyses of the Center's history, conduct an annual survey of member firms and associated faculty in order to ascertain Center effectiveness, and conduct an exit interview with any firm that terminates its Center membership.